Advanced Communications Technology in Robotics and Flexible Manufacturing Cells

IRI-9522930 Tesar, Delbert University of Texas-Austin $60,000- 24 mos CONACyT: Advanced Communication Technology in Robotics and Flexible Manufacturing Cells This is the first year of a two-year standard award. The field of manufacturing is on the verge of a revolution in the level of intelligence which will become possible and necessary during the next decade. This award under the NSF/CONACyT Initiative funds a collaboration between robotics investigators at the University of Texas at Austin and researchers at the Instituto Tecnologico y de Estudios Superiores de Monterrey (ITESM) laboratories at Cuernavaca and Mexico City to develop foundation technologies needed for high performance, reconfigurable, and fault tolerant robots and manufacturing cells for the next generation production facilities. The laboratory at Austin will concentrate on the foundation technologies for highly reliable, fault tolerant, and reconfigurable communications within production systems. This includes the creation of the best software structure and standardized reconfigurable interfaces at all connections in the system. The appropriate level of granularity, multiplexing, protocols, etc. will be developed to provide configuration management schemes to most rapidly and reliably avoid a fault in the data transfer including buffers to allow for transition time without loss of control information. The ITESM labs at Mexico City and Cuernavaca will focus on hardware and operational software for the manufacturing cells.